RI: Compositional Generative Perception

Modern computer vision systems excel at recognizing familiar objects and generating realistic images, but they still struggle to understand the subtle spatial structures that humans exploit to parse and understand scenes. A major limitation is that these systems often behave deterministically, producing a single "best guess" for the three-dimensional shapes and materials that explain an image. This approach fails to capture the inherent visual ambiguity of the real world, where a single image can often support multiple plausible interpretations. This project addresses these limitations by developing a new approach to machine visual perception that embraces ambiguity and mimics the behavior of human vision. By enabling computers to generate a diverse set of possible explanations for shapes and materials rather than over-committing to a single answer, this research will promote the progress of science and advance national health, prosperity, and welfare. The resulting technologies will have direct applications in assistive and industrial robotics, search-and-rescue operations, autonomous logistics, and augmented and virtual reality.

The primary goal of this project is to create a scalable class of neural architectures for intermediate visual processing that possess enhanced spatial reasoning and interpretability. The research activities are organized into three interconnected thrusts. The first thrust focuses on learning generative modules that operate primarily on local image regions to estimate three-dimensional surface shapes and material properties. The second thrust develops generative grouping fields to explicitly represent boundary geometry and extract object structures from diverse visual cues such as color, texture, stereo depth, and motion. The third thrust integrates these shape, material, and boundary elements into a unified system that automatically organizes images and videos into a sequence of depth-ordered, visually completed object layers. The team of researchers will evaluate these models using established public benchmarks alongside new datasets that will be released to the scientific community. Ultimately, this project will contribute to foundational methodologies and open-source software libraries to enhance robust perception across a variety of machine learning and robotic automation platforms.